Presidential Young Investigator Award: Sensor and Actuator Research for Robotic Manipulators

This project addresses basic sensor and actuator research for robotic manipulators. A key goal for this effort is to determine if it is possible to achieve the same behavior from a single transducer that was previously believed to require many transducers operating in parallel. Several types of sensors using new, flexible, and lightweight transduction materials will be evaluated.